Seismic Travel Times and Attenuation Measurements: An Earthscope Data Product

0544731
Wysession

USArray seismic body wave data are being analyzed to obtain attenuation measurements and cross-correlated travel times for the generation of 3-D attenuation tomograms of the sub-North American mantle. These EarthScope data products will be used by other geophysicists in developing many EarthScope products at both the data and knowledge levels.